CAREER: Discrete Structures in Continuous Contexts

The unifying idea behind the investigator's research
is to isolate combinatorial structures that govern or
arise from continuous data. Projects based on this
idea range from computational geometry of polyhedra to
equivariant algebraic geometry. First examples
include a variety of open problems concerning the
computational complexity of shortest paths on convex
polyhedral spheres, as well as the deeper geometry
controlling this complexity. The polyhedral methods
underlying the metric combinatorics that arises in
this context have potential applications to
graph-coloring questions, to the construction of
cycles representing characteristic classes on
piecewise linear manifolds, and to algorithmic
questions in computational biology. The central
issues shed fundamental light on the nature of
convexity and polyhedrality in combinatorics and
topology. In other projects under the umbrella of
extracting discrete phenomena from continuous objects,
the investigator and his colleagues study the
combinatorics of degenerations of algebraic varieties,
often in the presence of Lie group actions. The
irreducible components in such degenerations can index
summands in formulas from combinatorics and
representation theory, thereby giving geometric
explanations for the formulas' positivity. The
degenerations themselves are defined using techniques
from symbolic computational algebra.

Many systems in nature and throughout mathematics
involve continuously varying quantities, such as
volume or temperature. Surprisingly, finding order in
such systems is sometimes equivalent to isolating
finite or discrete pieces of information---analogous
to identifying the solid, liquid, and gas phases of a
material---from the underlying continuous framework.
In the investigator's research, the revealed discrete
structures produce abstract mathematical rewards of
deep aesthetic and theoretical significance. However,
concrete applications, especially in the form of exact
algorithmic calculations by computer, often arise as
byproducts of characterizing continuous systems by way
of discrete data. The investigator uses his research
as a context in which to foster a vertically
integrated mentoring environment, modeled on
interactive advising programs more common in
laboratory sciences, aimed at involving undergraduate,
graduate, and postdoctoral students in their
development as teachers as well as researchers.